Conference in Mathmatical Sciences: Dynamical Systems in Structured Population Dynamics, June 3-8, 1997 in Raleigh, North Carolina

ABSTRACT The NSF-CBMS regional conference on "Dynamical Systems in Structured Population Dynamics" will be held at the Department of Mathematics, North Carolina State University, June 3-8, 1997. Professor J. M. Cushing from the University of Arizona will serve as the principal lecturer of the conference. The conference will focus on a new and exciting area of research: structured population models, their relationship to experimental data and their implications for dynamical systems. Structured models span the gap between the level of the individual organism and the level of the total population. This direction of research is still in its formative stage and is currently under intense investigation by many mathematicians and mathematical biologists. A major breakthrough occurred last year when Prof. Cushing and his collaborators established nonintuitive complex dynamics in real population data. By controlling laboratory parameters of the flour beetle, they demonstrated complex dynamics including period doubling. Since then, these results and their mathematical implications have attracted the attention of many internationally renowned researchers. Prof. Cushing is an excellent lecturer and a major contributor to the area. With his presentation skills and broad view of the subject matter, he is most appropriate person to give a well organized presentation of the major ideas and recent results, and also set the future direction of research in this field during the course of his lectures.